A Center for High Energy Physics Research and Education Outreach at Florida International University

This award supports ongoing research by the Center for High Energy Physics Research and Education Outreach (CHEPREO) at Florida International University on the CMS experiment at the Large Hadron Collider at CERN, Geneva, Switzerland. Scientific contributions include the study of final states with Z bosons and searches for evidence of Supersymmetry. Technical contributions include maintenance and operations of the Hadron Calorimetry for the CMS detector, and grid computing for CMS physics utilizing the CHEPREO Tier-3 computing facility. The broader impacts of the program are substantial, from the development of innovative approaches to undergraduate physics instruction at FIU, to the continuing development of a research and education community that includes high school teachers and students in the southern Florida region.